MRI: Acquisition of Analytical Equipment for Interdisciplinary Research on Emerging Contaminants in Aquatic Systems

0216458
Luthy
This proposal will create a modern analytical facility at Stanford University capable of accurately measuring emerging environmental contaminants at trace levels in aquatic systems. By building on the University's new campus-wide Environmental Initiative, this proposal represents a strategic opportunity to significantly impact environmental research and education at Stanford University among faculty and students in chemistry, biology, geological and environmental sciences, and environmental engineering. The proposed emerging contaminant analytical facility will create interdisciplinary research opportunities and promote the teaching on the fate, transport, and effects of emerging contaminants in aquatic systems.